International Conference on Algebra and Related Areas

There will be an international conference on Algebra and Related Areas
held in Beijing during August 18-20, 2007. The conference will be
supported by Qinghua University, Institute of System Sciences, Chinese
Academy of Sciences and National Science Foundation of China. The funding
from the NSF will support American mathematicians who will speak or participate
in the conference. There will be 18 talks by prominent people covering
topics of current interest such as infinite dimensional Lie algebras, vertex operator
algebras, representation theory, algebraic geometry, number theory,
computational group theory, combinatorics, and application of algebra in
other fields. The goal of the proposed conference is to present some of
the most important advances in algebra and related areas and to discuss
future research directions. A major part of the conference focuses on
bringing mathematical leaders together with students, postdoctoral fellows
and young academics in a stimulating environment.

The conference has chosen two women professors from US universities as
main speakers so the broad participation can be achieved.
Also the senior mathematicians from US institutions can attract and
recruit best Chinese students to do graduate study in US. The
conference will help to strengthen the communication and cooperation
between algebra communities in US and China.